A Study of the Transfer of Carbon Across the Seasonal Boundary Layer of the Ocean

9402308 MARSHALL Dynamical, chemical and biological processes will be studied that control the transfer of carbon across the seasonal boundary layer of the ocean on the scale of ocean gyres. The study is mechanistic and designed to elucidate the role of the seasonal cycle in controlling the relative importance of the solubility and biological pumps. It explores the possibility that extreme conditions prevailing at the end of winter, not only determine key dynamical properties of the main thermocline- such as its ventilation rates, temperature and salinity properties- but also has a major effect on the rates and geographical pattern and seasonality of the carbon flux, both across the sea surface and through the base the mixed-layer. The inclusion of a realistic seasonal cycle can change these rates by as much as a factor of two and cannot be ignored in discussions of the natural or anthropogenic carbon cycle. The study employs a bio-geochemical model of the carbon cycle, driven by off-line transport parameters from a general circulation model of the North Atlantic undergoing a seasonal cycle. A hierarchy of experiments is proposed in which the model is integrated separately with representations of; a passive tracer; air-sea transfer and inorganic chemistry of carbon; nutrients and biology. The sequence will culminate in a comprehensive experiment, bringing all three processes together, biology, chemistry and the dynamics as well as the effect of enhanced air-sea exchange associated with winter storms. The experiments are designed to identify those processes which control the rate at which the ocean inducts carbon into its interior in different dynamical regimes. They are a crucial first step towards understanding the response of the ocean to the anthropogenic input of carbon.